Laboratory Equipment to Improve Undergraduate Instruction inPersonality Assessment.

Psychologists study human beings to understand the causes of behavior and the circumstances under which specific behaviors maybe predicted. For their studies psychologists use a variety of assessment techniques, including interviews, observations, and objective and projective testing. The project would establish a research laboratory to enable introductory-level and advanced students to learn about some of the techniques used by psychologists to understand behavior and assess personality. With the establishment of the laboratory, students would be able to participate in research as subjects and to conduct research themselves. This "hands-on" learning experience is expected to enhance student knowledge of personality assessment and correlational and experimental research methodology, as well as to increase their statistical and computer programming skills.